Studies of Exactly Solvable Models in Statistical Mechanics

9507769 Perk This is a continuing research project for the study of many of the unsolved problems in the chiral Potts models or generalized chiral clock models. New solvable cases will be pursued and connections between various fields of mathematics, physics, and other sciences will be explored. ***